Exploring the Design Space for High Performance and Low Cost Memory Hierarchies

The main objective of this research is to investigate the issures related to hardware designs and performance evaluations of a number of innovative cache design techniques. These design techniques are currently being developed for single-chip general purpose processors and multiprocessors. Specifically, the focus of the research includes: 1) minimization of area cost of on-chip caches by CAT--caching address tags: 2) maximization of cache hit ratios by evenly distributing data across cache sets with the help of a few tag bits that change frequently during program executions; 3) investigation of potential impacts of the new CAT cache designs for various cache configurations as well as multiprocessor caches; and 4) devising analytical models, and performing trace-driven simulations and execution-driven simulations for evaluating implementation costs, performances, and design trade-offs of various designs.